Validated Modeling of Network Component Performance: A Collaborative Research Effort Involving the Center for Advanced Computing and Communication (CACC)

The purpose of this project is to extend existing knowledge in the field of network traffic modeling in two ways. One objective is to develop approximation and bounding techniques that will provide first-order estimates of the performance of deterministic servers under arrival process having long-range dependence. This effort will build upon both our previous work in developing approximate solutions for closed queuing networks having analytically intractable service distributions and the more recent work of Norros which characterized the behavior of a system having a self-similar arrival process and a constant service rate.